Spontaneous Mutation: Somatic and Germinal

Our understanding of spontaneous mutation is still very incomplete Our information comes from disparate sources. The best studies on the spectrum of molecular changes involve somatic mutations in microorganisms. Less is known about germinal mutations in eukaryotes, although these are the source of variability for evolution. There have been measurements of rates of germinal mutations, but their rarity has limited the investigation of the relative likelihood of different kinds of alterations (base substitutions, insertions, deletions, transposition) among these mutants. In the case of mutant genes for inherited diseases in humans, there is extensive information, but vexing questions about selection leave us uncertain as to the frequency and the spectrum of the original mutations. Germinal mutations result from a series of rounds of mitosis followed by meiosis. Little is known about the role of meiosis in producing new mutants or in screening or modifying those mutants which have emerged from the preceding mitotic divisions. The vegetative growth habit of Neurospora is ideally designed for the analysis of spontaneous mutations. The mutants arise in the selectively neutral environment of the coenocyte and are revealed for assay in the asexual spores. Ascospores provide convenient material for the deletion of meiotic mutations, and the distribution of mutants in the fruiting bodies reveals which mutants are the products of the sexual cycle. A comparison of these mutants to those from vegetative cells will bridge the gap between somatic and germinal mutation. We propose a detailed analysis of spontaneous mutation at a specific locus in Neurospora.mtr is the structural gene for the neutral amino acid permease, and it offers special advantages for mutation studies. Selective plating can be used to detect rare mutants (or recombinants) going in either direction: from wildtype to mtr or the reverse. The gene has been cloned, so probes are available to examine the molecular properties of mtr mutants.